Presidential Young Investigator Award

This is a Presidential Young Investigator Award to Dr. Julian Schroeder of the Biology Department at the University of California, San Diego. Dr. Schroeder's overall research goal is the elucidation of molecular mechanisms of ion transport and primary events in environmental and hormonal signal transduction in higher plant cells. His pioneering work in the application of techniques of electrophysiology to plant cell biology has had a major international impact. Dr. Schroeder also shows great promise as a teacher and mentor in training the next generation of scientists.